Acquisition of an Analytical Transmission Electron Microscope for Materials Research

9303794 Aksay This transmission electron microscope (TEM) with analytical and high resolution imaging attachments will be used to improve research and education in materials sciences and engineering at Princeton University. The Princeton Materials Institute (PMI) will provide the location and support for a multidisciplinary TEM center. Materials research at Princeton University involves collaboration among 55 faculty members from several departments (Chemical, Electrical, Mechanical, and Civil Engineering, Physics, Chemistry, Molecular Biology, and Earth Sciences) and is coordinated by the PMI. The primary TEM system will comprise: (i)a TEM with a high resolution pole piece for high resolution electron microscopy (HREM) imaging and convergent beam electron diffraction (CBED), (ii)a scanning transmission electron microscopy (STEM) accessory (iii)an energy dispersive X-ray spectrometer (EDS), (iv)an electron energy loss spectrometer (EELS) with an energy filter, and (v)a multichannel analyzer and support computers for data acquisition, storage, and processing. This instrument is capable of high spatial resolution imaging of crystalline and amorphous structures, small-beam electron diffraction, and compositional and spectroscopic analyses of micro- and nano-scale features, all necessary tools for characterizing materials structures. It will replace the present TEM (Philips 400) which has inadequate spatial resolution and no analytical attachments. Although the current microscope cannot be used for high resolution studies, it will be retained for teaching. In fact, PMI is promoting a series of courses for both graduates and undergraduates in which electron microscopy is taught. The recognition of the importance of TEM to Princeton is evidenced by the dedication of laboratory space specifically for this instrument in the new PMI building and the appointment of new faculty and staff with expertise in both TEM and materials sciences. These sc ientists will serve as a dedicated core of microscopists who will enable the microscopy facility to meet the critical demands of the present research and educational needs as well as to open new avenues in teaching and collaborative research in materials sciences at Princeton University. ***